USACM Workshop on Computational Nanomechanics of Materials; April 29-30, 2004; Chicago, IL

The workshop will bring together diverse computational mechanicians dealing with discrete (atomistic) and continuum (PDEs) phenomena. Leading experts in the two communities will deliver extended lectures on the topics of mechanics of single crystals at the nanoscale, the mechanics of nanostructures (nanograins, nanotubes, and nanopatterns), and the bridging between nano-micro-macro scales. These lectures will benefit junior researchers, including junior faculty, research associates, post-docs, and graduate students. In particular, the junior researchers in the field of continuum mechanics will benefit the most.
In addition to the extended lectures, leading authorities from governmental agencies will chair a panel discussion. This panel will address the issues of both scientific and technological/programmatic challenges to researchers of computational mechanics. The accompanying poster presentations will provide an opportunity for the researchers to exchange views with their peers and with the governmental representatives.